SGER: To Explore the Feasibility of Collaborative Resident-Scientist Climate Policy Research on the Alaskan North Slope Coastal Region

Climate in northern regions is expected to change dramatically in the coming decades. Climate research has developed tools to predict long-range change and to evaluate the uncertainty in these predictions. It is possible that these research products could potentially play a role in regional and local decision making. However, communities may have alternate approches to dealing with climate events and climate change, approaches that may not link to predicitive research products. This Small Grant for Exploratory Research would conduct interviews and small conferences with residents of the Alaskan North Slope communities. These gatherings will be used (1) to evaluate the understanding by individuals within these communities about climate events, (2) to determine what policies or actions they take to adapt to or mitigate climate events, and (3) to examine whether their culture institutions can incorporate predictive research products.